ADA in Undergraduate Computer Science

This project introduces topics in data abstraction and concurrent programming at the lower division using the programming language Ada. The curriculum changes are supported by state-of-the art equipment and software. The laboratory equipment includes: four (4) SUN 3/50M workstations connected to a SUN 4/280S Server through an Ethernet connection and dial-up connections for external users. In addition to curriculum changes at the lower division, this project introduces workshops for students who have completed the lower division so that Ada can be phased into upper division courses as well. This award is being matched by an equal sum from the grantee.